Modelling Primary Production in the Arabian Sea

A numerical model of the wind-forced circulation of the Indian Ocean will be coupled with a photosynthesis-irradiance model to investigate the intense upwelling and associated primary production that is observed in the northwestern Arabian Sea during the southwest monsoon. Extensions of the model are underway to include explicit mixed-layer processes. The newly constructed photosynthesis-irradiance model will be coupled to the physical model to allow a more indepth investigation of the upwelling process and its effect on sea surface temperature (SST), biological primary production, and the oceanic carbon budget in this region. The coupled model will provide a mechanism for integrating satellite altimeter, SST and ocean color data into a common coherent framework for analysis and interpretation. The model will be used in the design of the forthcoming JGOFS Arabian Sea Process Study by quantifying the expected variability, using model data to test sampling schemes, and by providing "quick-look" estimates of present conditions. The model will also be useful in the analysis of observations, allowing interpretation of point measurements in a broader framework in both space and time.